Algorithmic and Combintorial Problems On Words

The objective of this research is to limit a systematic study of the tradeoff between structural simplicity and expected performance in combinatorial algorithms. In this research, the attention is restricted to some fundamental algorithmic problems on words (or strings). One goal is that of testing to what extent simpler and more direct algorithms can be expected in practice to match performance of more complicated, asymptotically faster ones. (In general, straightforward algorithms are not only more easily designed, but also more easily encoded, debugged, documented, upgraded etc.) Another goal is that of discovering entirely new algorithms on words that would represent good compromises in terms of structural complexity, expected performance and worst-case performance. A third goal is that of identifying novel cost measures for at least some classes of algorithms, possibly along with new analysis-design methodologies.